Multibeam Database: Search and Rescue

The Geologic Data Center at SIO has multibeam bathymetry data for 241 cruises on three vessels. These data have been locally archived and used to create custom data products for the MGG community. In the future, the intention is to make all these data available on line to the community and much of the cost for doing this is provided by other support (other NSF directorates and programs). Under this award, the PIs will clean up the existing data (systematically make appropriate corrections, edit bad data, make consistent file names, etc..), and migrate all the data to a common medium- a robotic digital tape library that will be under the control of the Storage Resource Broker, an archive management product of the San Diego Supercomputer Center.